NGS: Agent Oriented Approaches to a Ubiquitous Grid

EIA-0203958 Anupam Joshi University of Maryland-Baltimore County Agent Oriented Approaches to a Ubiquitous Grid

At the level of computing and networking hardware we will see dramatic changes in the next few years. Computing will become pervasive. These developments will lead to wireless networks that will scale all the way from ad hoc body area networks to satellite WANs, and link together supercomputers, "palmstations" and embededded sensors & controllers.

Given this scenario, our proposed research will seek to extend the computational grid by making it ubiquitous and pervasive. In particular, we will develop agent based runtime systems where each component is autonomous, articulate, social and adaptive. Such a system will seamlessly partition computation across elements of the grid ranging from palmtops to supercomputers. Issues that we will investigate include (i) Component/Service Discovery, (ii) Dynamic Composition of components, and (iii) computation partition across highly asymmetric and heterogeneous systems.